Playtime is Science: A National Model for Parent Involvement in Early Science Education

Playtime Is Science: A National Model for Parent Involvement In Early Science Education is an innovative parent/child science activity program. The overall goal of the model is to enlarge the potential pool of students who are competent in science and technology to include more girls, children of color, with disabilities, and children from low-income families. By engaging parents in partnership with schools and community organizations, Playtime Is Science will increase the science literacy of young children (ages 4-7) as well as that of their parents and other adults in their lives. This three-year project, built on a successful local model developed in New York City public schools, will include the following activities: training and networking for site liaisons; pilot testing and evaluation at three sites chosen for geographic, racial, ethnic, language, and socioeconomic diversity; materials development and production; a formal research study; and intensive national dissemination of Playtime Is Science materials package. Materials to be developed include 1) four videotapes to provide a visual rendering of the program for parents, teachers, and administrators; 2) a how-to manual providing easy-to-follow instructions for implementing the program; 3) and a home activity booklet for parents illustrating science activities which utilize inexpensive, readily-available materials found in every home.